Stationary and Traveling Crossflow Interactions Controlling Vortex Saturation and Secondary Instabilities

A vehicle moving through air has thin regions of air near its surfaces called boundary layers. They strongly affect fuel consumption, heating, efficiency, acoustics, and safety. When a boundary layer transitions from laminar to turbulent flow, aircraft experience higher drag, and high-speed vehicles can experience stronger surface heating. This project will study the role of crossflow vortex instabilities in the transition. This instability can amplify vortices in the boundary layer on swept wings and vehicles. Low-speed experiments have shown that surface roughness and small disturbances in the surrounding air affect the size of crossflow vortices when turbulence ensues. High-speed experiments are much more difficult to conduct in the laboratory. The project will use advanced computer models to analyze the physics of the flow and determine whether low-speed results pertain at higher speeds. The results will support more efficient aircraft design and better thermal protection for high-speed vehicles. The project will also benefit K-12 education efforts through the University of Notre Dame’s STEM Teacher Residency program. The project will align with NSF priorities, supporting understanding and resiliency in the advanced manufacturing of engineering systems.

This project will investigate how the initial strength of stationary and traveling crossflow disturbances affects the final size of saturated crossflow vortices across flow speeds ranging from low-speed to hypersonic conditions. The study will use nonlinear parabolized stability equations, a computational approach that tracks the downstream growth and nonlinear interaction of instability waves and vortices in boundary layers. The research will first use the Falkner-Skan-Cooke family of self-similar solutions since there is a simple numerical approach to describe three-dimensional, steady laminar boundary layer flows over swept wings or yawed cylinders. The effects of speed and initial disturbance amplitudes can be separated from changes in the underlying base flow. The project will then formulate an energy budget to identify which nonlinear mechanisms control saturation. Finally, the study will determine how changes in vortex saturation affect the onset of secondary instabilities, which are rapidly growing modes that often appear and depend on the base flow and vortices. These results will then be extended to more realistic canonical geometries to test whether the same trends and mechanisms apply in realistic flows. By linking initial disturbance amplitudes, vortex saturation, and secondary instability onset, this research will lead to a physics-based framework for predicting crossflow-driven transition across speed regimes on realistic vehicles. This will lead to increased economic competitiveness of aircraft manufacturers with more efficient vehicles and improved national security through better hypersonic defense systems.